Workable Internet x.500 Directory

4 From: "David A. Staudt" <dstaudt> at NOTE 8/4/94 7:47PM (876 bytes: 17 ln) To: gclavon at nsf15 Subject: Howes ------------------------------- Message Contents ------------------------------- ---------------------- Original Header Lines (From NOTE) ----------------------- X-Sender: [email] Mime-Version: 1.0 Content-Type: text/plain; charset="us-ascii" ------------------------------- Message Contents ------------------------------- ABSTRACT NCR-9416667 PI: Timothy Howes University of Michigan "Workable Internet x.500 Directory" This is a two year project to develop a stand-alone Lightweight Directory Access Protocol server. It uses a centroids-based distributed indexing service that works within the X.500 framework. Its design is consistent with the white pages directory service concept described in RFC 1588 which resulted from the November 1993 IETF meeting sponsored by NSF.